Proposal for a Workshop to Coordinate the US-India Million Book Digitization Project

This is a proposal to fund two workshops to bring together computer science and digital library researchers from the US and India, to forward the work of the "million book project". It is important to maintain coordination between the countries so that the international collaboration is maintained and the work can proceed in a unified and most productive way. The topics discussed will include scanning technology, selection of materials, and related issues.